Microcomputer Based Introductory Laboratories Using Titrations

This project is improving the quality and relevance of the first and second courses dealing with chemical analysis through the use of microcomputers and automated titrators. This is being accomplished through the use of four automatic titrators in conjunction with four micro-computers. This permits students to design and control automatic titrations; to collect and process data; to learn a greater number of volumetric methods including colorimetric, potentiometric and pH titrations; and to become familiar wtih the application of computers to new and old methods of analysis. The automatic titrator/computer is being used to do a series of titrations involving acids and bases; redox titrations; and potentiometric titrations. The equipment is being used to teach students about a greater number of analytical techniques and making it easier to use the laboratory experiments to reinforce theoretical topics covered in the lecture. It is also enabling the teaching of methods of analysis through the use of computer simulation. In addition many laboratory skills are being taught in a more efficient and meaningful manner through the use of computers in the laboratory setting. The grantee is matching the award from non-Federal sources.